Call the Wild: Fostering Understanding of the Nature of Science

The University of Florida, in collaboration with the Florida Museum of Natural History and Institute of Food and Agricultural Sciences Extension, National 4-H, Association of Zoos and Aquariums, Jacksonville Zoo and Gardens, and the Institute for Learning Innovation will implement Call the Wild, a proof-of-concept project to investigate the educational outcomes of promoting understanding of the nature of science (NOS) through visitor engagement in outdoor exhibits that incorporate mobile technology to further focus attention and deliver unique content.

The project will explore: (1) zoo visitor ownership of cell phones, use of the different cell phone features, and likelihood to access interactive content and activities through their phone; (2) the potential of wildlife viewing experiences and technology applications for engaging visitors in learning about NOS; and (3) the potential to measure visitor understanding of NOS related to zoo experiences. This project seeks to advance our understanding of the educational impacts of mobile telephony in informal learning environments such as zoos.